Scanning Electron Microscopy Applications for Community College Science Instruction

The addition of fully automated scanning electron microscopy to the undergraduate biology laboratories at North Hennepin Community College (NHCC) will make possible a level of science instruction at the lower-division that was, before this time, reserved only for upper-division and graduate students. Using an older, manually operated Scanning Electron Microscope(SEM), a pilot project with SEM applications for lower-division college students has demonstrated that SEM lab experiences generate a greater interest in and understanding of science subjects. A fully automated, user friendly SEM will permit the following changes to be made in the Biology Department: (1) A new course focusing on techniques in structual biology that includes a student research componen will be added; (2) students studying cell and molecular biology will have enhanced hands-on lab experience in the examination of cellular and tissue structure; (3) all students in introductory biology will have an opportunity for firsthand operation of a SEM -The experience itself and the micrographs produced will supplement other laboratory and lecture materials used for the study of intricate structures; and (4) laboratory demonstrations for visiting secondary school students and opportunities for research projects by visiting college and secondary school educators will increase.